Nuclear Physics at Low and Intermediate Energies Including Hadron-Charge-Exchange

This grant supports a program of experimental research using proton-induced charge exchange reactions to study nuclear structure and the isovector components of the nuclear force. The measurements will be carried out at the Indiana University Cyclotron Facility and the Los Alamos Meson Physics Facility. In addition to its consequences for the understanding of nuclear structure physics, this research will provide information concerning the suitability of boron-11, gallium-69, iodine-127, and thallium-205 as detectors for use in solar neutrino measurements.